Support for Student Participation at 65th International Conference on Electron, Ion, and Photon Beam Technology & Nanofabrication; New Orleans, Louisiana; May 31 - June 3, 2022

This award supports student attendance at the International Conference on Electron, Ion and Photon Beam Technology and Nanofabrication (EIPBN) to be held May 31 to June 3, 2022, in New Orleans, Louisiana. The EIPBN meeting is a lithography and nanofabrication meeting which attracts participants and presenters from academia, industry, and government laboratories. This forum helps to generate and incubate breakthrough and transformative ideas in many scientific areas including nanotechnology and nanomanufacturing. This international conference helps link basic science with engineering towards the development of useful nano-enabled products, which are significant to the US and world economies. This conference offers a forum for the open exchange of new and previously-unpublished scientific research and ideas. This award will partially support the participation of undergraduate and graduate students who are authors or co-authors of papers to be presented at the conference. The award will help to train the next generation of researchers in nanotechnology and nanomanufacturing and to broaden participation by students who would otherwise not be able to attend.

EIPBN will provide a forum for discussion of the latest developments in directed energy-enabled synthesis, fabrication, imaging, measurement and characterization of nanoscale structures, multi-layered devices and multi-scale systems. NSF funding will be used to support about 36 students financially so that students may participate in short courses, the commercial session, the technical program, and other events. There are also a number of key student programs, including a career mentoring session with academic and industry leaders, student breakfast with the organization committee, and Women in Nanofabrication (WIN) luncheon to discuss diversity challenges faced by nanotechnology researchers and scientists. The conference organization committee will reach out to local universities and to underrepresented groups to recruit student presenters and participants.